Conference on Aminoacyl tRNA Synthetases in Biology and Disease being held February 1, 1997 in Taos, New Mexico

9603161 Martinis This project is to organize a meeting with focus on tRNA synthetase. The meeting will be held as a part of the Keystone Symposia, at Taos, New Mexico from February 1 to 6, 1997. It is to provide a state of the artı forum at an international level for the exchange of information engaging both young and seasoned investigators. The keystone conferences have an established policy for the participation of women, minorities and persons with disabilities, and representation from industry versus academic institutions, and will be adhered to in both the spirit and the practice. The Scientific program will cover a range of topics which include diversity, interaction, structure, recognition, processing, acylation, and unusual functions and is to be presented by speakers from France, England, Japan, Israel and USA. The support from NSF will be used to subsidize 10 students and two cochairs for travel. The tRNA synthetases constitute a group of enzymes whose exquisite substrate specificity helps to insure proper translation of the genetic code. An international conference on this topic was held in 1990, and much progress has been made since. Another meeting would be timely and desired. The conference being organized will be held at Taos, New Mexico from February 1 to 6, 1997, under the auspices of the Keystone Symposium. While the program will feature presentation by international experts on the subject, the support will be used mainly to help defray expenses of student participants. January 8, 1997 (PCH) 9604680 Fane The proper assembly of viral proteins and nucleic acids into a biologically active virion involves numerous and diverse macromolecular interactions. The main objectives are to elucidate these critical interactions and to define the structural domains of the responsible macromolecules. A combination of genetic, biochemical and structural approaches (X-ray crystallography) will be employed to accomplish the objectives. Like molecular chaperones, scaffol ding proteins direct other proteins in achieving their proper three-dimensional conformations. Within the context of this analogy, the atomic structure of a procapsid offers a depiction of a chaperone-like protein complexed with its substrate. Prior results suggest that the Microviridae internal scaffolding proteins, gpB, share many properties with molecular chaperones. Prior results also indicate that the internal scaffolding proteins either possess inherent flexibility or interact with their substrates in nonspecific manners, perhaps via interfaces. Determining the atomic structures of hybrid procapsids, containing foreign scaffolding proteins, will directly address this question. The present (X174 procapsid structure does not contain the internal scaffolding protein which is lost during purification. During the first year of support, alternate genetic and purification strategies will be explored to stabilize this protein. The current protocols will still be employed to gather additional data to refine the external scaffolding protein structure. Also within the first year, the genetic and purification strategies needed to generate alpha procapsids will be developed. Continuation of the structural work, done in collaboration with Dr. M. G. Rossmann, will proceed throughout the support period. The recently solved atomic structure of the external scaffolding protein, gpD, suggests that it also shares many features with molecular chaperones. Thus gpD, like a molecular chaperone, can bind to other proteins in many different ways. While some domains make contact with the coat protein in varied manners, one of these domains may determine the protein's substrate specificity for a particular viral coat protein. the plasmid-based cross complementation system has been extended to this gene. Unlike the internal scaffolding proteins which exhibit a great deal of divergence in primary structure, the external scaffolding proteins share 75% sequence identity. The (X174 protein, however, is un able to productively direct the assembly of other Microviridae virions. A comparison of the primary structure reveals that the divergent residues are localized to the NH2 -termini of the proteins which forms a large (-helix in the (X174 atomic structure. These observations suggest a model in which the scaffolding's specificity for a particular viral coat protein resides in this region. This hypothesis will be tested with chimeric polypeptides. During the first year of support, restriction sites needed to construct chimeric external scaffolding proteins will be introduced. The (X174 gene will be recloned and clones of other Microviridae D genes will be generated. Characterization of the chimeric genes and gene products will commence in the second year. The results of these analyses may also provide insights into the design of recombinant proteins. All viruses must assemble themselves by means of multiple protein interactions. viral assembly is often dependent on proteins known as scaffolding proteins. Analogous to scaffoldings used in the construction of buildings, scaffolding proteins are found in virus assembly intermediates but not in the mature viruses. Two different scaffolding proteins, external and internal, are required for the assembly of the Microviridae family of viruses. With These viruses we are able to purify viral intermediates which still include the external scaffolding protein. By examining the atomic structure of the external scaffolding protein and performing genetic analyses with both the internal and external proteins, we have determined that different regions of the scaffolding proteins may have specific and identifiable functions. Refining the atomic structure of these proteins and testing our hypotheses regarding their various functions by constructing hybrid Microviridae scaffolding proteins are the main objectives of the proposed work. The results of these analyses will provide further insights into virus assembly and the design of recombinant proteins.